A High Performance & Waterborne Marine Timber Protection Coating

The Phase I research demonstrated the feasibility of formulating a novel coating system for wooden structures, which through improved bonding between the wooden substrate and the coating, effectively protected the wood from attack by marine borers, such as shipworms. In addition, it was demonstrated that a waterborne system could be formulated which also effectively protected the wood, but also contained no hazardous or environmentally suspect components. The Phase II program continues and expands upon this promising early work. This study includes a systematic examination of the many formulation variables, and their impact upon the coating's physical and handling properties, aesthetics, and biofouling characteristics. An expanded series of ocean tests is planned to establish the long-term effectiveness of the advanced coatings.